Risk Perception and Decision Making Under Risk and Ambiguity in the U.S.A., Poland, P.R. China, and Hong Kong

The PIs propose to investigate risk perception and decisions under risk, ambiguity and uncertainty in the United States, Poland, Hong Kong, and the People s Republic of China. The investigation will occur at two different levels. First, at the general cultural level, an analysis of proverbs and movies will be performed in order to determine the overall cultural attitude toward risk and the components of decision making, such as probability, outcomes, or dread. Second, at a specific behavioral level, the PIs will examine managerial decision tasks. This portion of the research will include the examination of personality traits and situational factors which influence risk perception and decision making. Scenarios will be included that cover a broad range of risk and decision tasks, including financial, social, and political situations.